3-manifolds and number fields

DMS-0307078
Adam Sikora

Thirty years ago B. Mazur discovered some surprising
similarities (a) between knots and prime numbers, and (b) between
3-dimensional manifolds and number fields. Those similarities were
further elaborated by Kapranov, Morishita, Ramachandran, Reznikov, and
PI, but the full scope of these analogies is still unknown.
PI's goal is to continue investigation of these analogies and their
roots.

Arithmetic topology is an exiting new area of mathematical research
relating two of the most active areas of mathematical research
in the recent years: low-dimensional topology and number theory.
The development of Arithmetic Topology is driven by the desire to
establish
rigorous and uniform foundations for those two seemingly diverse
theories.